Quantum State Preparation and Measurement in Molecules

9877023
Walmsley
This research project focuses on the investigation of the manipulation and control of fundamental quantum systems using methods of ultrafast spectroscopy. The goal is to excite in a programmable way particular quantum states of atoms and molecules that have no classical counterpart, with particular attention given to nonclassical quantum states in the electronic, vibrational, and, eventually, center-of-mass coordinates of diatomic molecules. The quantum state of the molecules will be determined from the time- and frequency-resolved spectrum of spontaneous emission and via a self-referencing interferometric method.